Gravitational Radiation and Relativistic Astrophysics

Theoretical research is being carried out in two areas related to
gravitational waves and their detection. The first area is the
invention of new techniques and technology for advanced
laser-interferometer gravitational-wave detectors. These advanced
detectors will entail measuring the motions of 40 kilogram
sapphire-crystal mirrors with an accuracy so high that the mirrors are
governed by the laws of quantum mechanics and not the laws of classical
physics. The new techniques and technology entail, among other things,
new configurations of mirrors and laser beams designed to deal with
quantum effects that are absent in current gravitational-wave
detectors, changes in how the laser light is manipulated after it
leaves the interferometer, and a reshaping of the cross sections of the
interferometer's light beams. The second area of research is the
theoretical modeling of astrophysical sources of gravitational waves
with the goal of predicting the sources' dynamical behaviors and the
details of the waves they emit. Among the sources being modeled are
oscillations of rapidly spinning, newborn neutron stars, the spins of
neutron stars that are accreting gas from companion stars (``Low-Mass
X-Ray Binaries''), the late, highly relativistic phase of inspiral of
black-hole/black-hole and black-hole/neutron-star binaries, collisions
of black holes, and the tearing apart of a neutron star by a black
hole.

The research on new techniques and technology for gravitational-wave
detectors is a key underpinning for the advanced detectors that are
being proposed for construction in LIGO (the Laser Interferometer
Gravitational Wave Observatory) beginning in 2006, and for even more
advanced detectors in the subsequent decade. This research makes use
of, and contributes to, human knowledge in the area of quantum
information theory --- a new, 21st century discipline that also
includes quantum computation. This research is likely to have much
impact on areas of technology that---in the coming two or three
decades---will confront quantum limits on the accuracy of measurement
and will try to evade them via ``quantum nondemolition'' (QND)
techniques. These areas of technology include quantum optics and
nanotechnology. The research on sources of gravitational waves will
provide key underpinnings for analyses of the gravitational-wave data
to be produced by LIGO: It will improve the ability to find
gravitational-wave signals in the noisy LIGO data, and it will provide
tools for extracting astrophysical information from the discovered
signals. Thus, this research will play a key role in future
gravitational-wave-based studies of black holes, neutron stars, and
their oscillations and collisions.